Design Principles for the Immune System and Other Distributed Autonomous Systems

Segel
9876803
The invstigator and his colleagues organize a meeting at the
Santa Fe Institute to study distributed autonomous systems. Such
systems are comprised of many relatively simple elements that
operate without central direction. Examples are metabolic
systems, ant colonies, distributed computer architectures, and
the immune system. Emphasis is put on the immune system, because
of its great intrinsic interest, its importance in health and
disease, and the massive (but incomplete) detail known concerning
the operation of its trillions of cells. Leading theorists and
experimentalists in immunology present a distillation of present
day experimental knowledge together with mathematical and
computer models based on this knowledge. These experts seek to
formulate general principles that apply not only to the immune
system but also to the other distributed autonomous systems that
are under study. Experts on the other systems report on their
specialties and also try to distill principles that are broadly
applicable. Half the participants are graduate students and
postdocs, who can adopt the novel views expressed in their future
research.
This meeting is concerned with the study of systems that can
accomplish a variety of complex tasks with a large leaderless
group of relatively primitive components. The major example to be
studied is the immune system, with its trillions of cells and
hundreds of signaling chemicals. Experimentalists and theorists
report on advances in understanding how the immune system can so
expertly perform a spectrum of tasks such as killing the large
variety of bacteria and viruses that invade the body. Other
experts report on advances in understanding other complex
systems, such as the metabolic system that turns our food intake
into energy and growth, or systems of fictitious "agents" that
work in novel computer programs that attempt to reproduce aspects
of creative thought. The clash of ideas that come from
simultaneous consideration of these different systems should
generate principles of wide applicability. Such principles are
essential if we are to advance beyond the stage of collecting
pieces of data that add to our understanding of elements of
system behavior but leave us more and more baffled as to how all
these elements combine to give effective system performance, and
how we could ever manipulate system behavior with any confidence.
In time, identification and validation of these principles can
have far-reaching applications ranging from aid to physicians in
generating manipulations that help the immune system fight
disease, to enabling computer programmers to find novel ways to
fight "virus" and other intrusions into computer systems and to
design computer systems that "think" less rigidly and more
creatively than present "intelligent" computers.